HPLC Determination of Trace Levels of Azaarenes in Water andWastewater

The objective of this research is to improve analytical procedures for determination of the kind and amount of organic substances classified as 'azaarenes' in water. These compounds constitute a class of substances associated with extraction and processing of minerals for production of liquid and gaseous fuels.